Current-Mode Integrated Circuits for CMOS Mixed-Mode VLSI

This research advances several new directions for current-mode (I- mode) analog integrated circuits. I-mode circuits potentially operate at high frequencies using low power supply voltages because they process current rather than voltage as in conventional or switched-capacitor signal processing circuits. Moreover, I-mode circuits do not require precision linear floating capacitors, and are therefore very attractive for implementing mixed-mode signal processing systems in the emerging submicron digital CMOS and/or BiCMOS technologies. Several high-speed high-accuracy current-mode techniques are considered in the design of a basic analog signal processing block with emphasis on developing techniques suitable for implementation with digital IC technologies using a reduced supply voltage. A high-gain universal fully differential current mode operational amplifier topology is being used and, in one application, is extended to implement fully differential switched-current filters with accuracy comparable to switched-capacitor filters. Several clock-feedthrough cancellation schemes are also suggested. Finally, a new high-frequency continuous time current-mode filtering technique will be used. Frequencies exceeding 100 MHZ appear feasible using a 2 um CMOS technology with higher frequencies possible using more advanced CMOS and/or BiCMOS technologies.